Collaborative Research: Minimum Sobolev Norm Methods

Collaborative Research: Minimum Sobolev Norm Methods

The aim of this research project is to design fast and accurate
numerical algorithms for the solution of large classes of mathematical
equations that arise in engineering and science. In particular, the
main concerns are the solution of integro-differential equations on
complex domains and of signal and image processing problems. The
approach is based on formulating the estimate of the solution of the
equation at a point as the value of the smoothest solution (on
average) at that point based on the given data. The resulting discrete
equations can be shown to have specially structured matrices, which
can be exploited to create fast solvers for these equations. The
resulting methods have two main computational advantages. First, they
can be designed to avoid gridding or triangulation of the complex
domain. Second, these methods exhibit local convergence; that is, the
rate at which the approximant converges to the solution at a point
depends only on the local smoothness of the solution. These advantages
enable the method to tackle equations with complicated singularity
structures with relative ease.

Let Hs denote a Sobolev Hilbert space whose elements have s > 1
fractional derivatives. Suppose an unknown function f in Hs satisfies
the equation L(F) = g, where L is a linear operator and g is a known
function. Let Ln denote n linear functionals on Hr. Let q denote a
linear functional on Hs. Then the best minmax estimate for q(f) can be
computed from the minimum Sobolev norm function p in Hs that satisfies
the constraints Ln(L(p)) = Ln(g). This p can be computed very rapidly
since the optimal p is given by a nice set of equations that has Fast
Multipole Method (FMM) structure when written in the proper
representation. Also, it is possible to work with Lp Sobolev spaces
with p = 1. In these cases the optimization problem is more
complicated and can be reduced to linear programming problems, for
which fast solvers are being developed that exploit the underlying FMM
structure of the constraint matrix. The theoretical work consists of
studying the convergence of the solution as n gets bigger, and also in
proving the FMM structure of the resulting discrete equations. The
algorithmic work consists of designing fast algorithms for
constructing the FMM representation and then designing fast algorithms
for the direct (non-iterative) solution of these equations. The
application work consists of applying these ideas to image
segmentation and multi-rate signal processing. Also, mesh free,
locally convergent schemes are being developed for the solution of
integral equations and elliptic partial differential equations on
complex domains in two dimensions.